Calculus of Variations in L-infinity, Fully Nonlinear Subelliptic Equations on Carnot Groups, Analysis of Biharmonic Maps and Harmonic Maps

Proposal DMS 0400718
Title: Calculus of variations in L-infinity, fully nonlinear
subelliptic equations in Carnot groups, analysis of biharmonic and
harmonic maps

PI: Changyou Wang, University of Kentucky

ABSTRACT

The proposal consists of problems in four main areas. In part 1,
the PI plans to continue his study on analytic issues of calculus
of variations in L-infinity consisting of the relation between absolute
minimizers of L-infinity functionals and viscosity solutions of their
Aronsson-Euler equations which are fully nonlinear degenerate pdes,
and uniqueness of viscosity of Aronsson-Euler equations. In part 2,
based on his recent works on uniqueness of viscosity solutions to
the subelliptic infinity-Laplace equation on Carnot groups, the PI
aims to establish the comparison principle for fully nonlinear
subelliptic pdes including subelliptic Isaas-Bellman
equations and horizontal Hessian equations on Carnot-Caratheodory spaces.
In part 3, the PI plans to further study partial regularity of
stationary biharmonic maps such as the optimal size and possible
structures of the singular set of biharmonic maps and the heat flow
of biharmonic maps in four dimension and its applications.
In part 4, the PI plans to continue his study on weak
sequential compactness and energy quantization of harmonic maps
and the heat flows of harmonic maps.

The proposed problems lie in the field of nonlinear pdes which
provide basic laws and play crucial roles in studying problems
from analysis, geometry, applied sciences. Variational problems of
supernorm are not only mathematically important but also of
great practical interests. There are many problems from control
mechanisms, risk managements in operation research, extreme value
engineering where one must design for the worst case
(e.g. determine a control to minimize the cost functional which is the
maximum of a function). On the other hand, since supremum norm
functionals lack strong differentiability and their associated pdes
are degenerate fully nonlinear equations, many new techniques must be
developed for the study. Underlying many physical phenomena is a least
energy principle where certain configurations or geometric shape are
distinguished by having less energy or area than competing objects.
The nonlinear target constraints often lead to singularities. For example,
domain walls in magnetized materials, point, curve, and surface
defects in various liquid crystal materials, and vortices in
superconductivity. We need to develop new mathematical structures
and theories in order to explain and predict such phenomena. The
proposed study on harmonic maps and biharmonic maps is certainly
motivated by these considerations. The research findings in these
directions shall be very important to our knowledge of second (or higher)
order nonlinear elliptic systems with borderline nonlinearities
and many potential applications as well.